MIDmet Interregional Connectivity

9321013 Covert This award assists the MIDnet mid-level network in obtaining connectivity to other regional networks and to the rest of the Internet. The award, made under the guidelines published in NSF Program Solicitation 93-52, partially funds one T-3 (45 million bits per second) connections. Anticipated duration of the award is four years.